Understanding Magma Genesis in Subduction Zones: New models for Reactive Hydrous Melting and Transport

Fluid transport in volcanic arcs is perhaps the most extreme expression of a larger class of problems in reactive fluid transport that has important applications to problems such as ground water flow and contaminant transport. This research focuses on developing computational and theoretical methods to construct a consistent framework for investigating the transport of fluid, melts and chemistry across the mantle wedge in subduction zones. The model will be tested by comparing model predictions with geophysical and geochemical observations from subducting slabs and volcanic arcs. The completed model will permit insights into the behavior of channelized hydrous magmatic systems and the transport of magmatic and hydrothermal geochemical tracers. The primary objective of the work is to provide computational and theoretical tools to facilitate collaboration between observationalists and